Intercomparison of the Primitive and Reduced Equations for Numerical Ocean Studies

Two types of ocean circulation numerical models, the Primitive Equation Models (PEM) and the Reduced Equation Models (REM) will be compared in order to determine which one is best-suited for various classes of oceanic problems with scales from several kilometers to several thousand kilometers.